Research Scholars in Electrical Engineering

The University of Texas at Arlington's Department of Electrical Engineering is conducting a Research Experiences for Undergraduates program. The program will be the participation of undergraduate scholars in research projects and the significant interaction between faculty and students. There will be an academic year component, open to all qualified scholars, and a summer component, designed to emphasize the participation of underrepresented minorities. The scholars will be expected to exhibit qualities such as creativity, productivity, effective communication, and independence upon completion of their training in the program. Students will participate in the complete research process. They will select a research topic with their faculty mentor, write a research proposal, perform a literature search, attend and participate in an Ethics Forum, conduct the research, analyze data, write progress and final reports, present the work orally, and evaluate the experience.